CAREER: Function and Evolution of a Novel, Fundamentally Different Visual System in Dytiscid Diving Beetle Larvae.

Eye design is extensively influenced by the physical properties of light and the limits of optics. Therefore, most animal eyes studied so far are variations of a few previously described types. In this project, Dr. Buschbeck will study insect eyes that diverge in fundamental ways from known visual organs. Eyes of the predatory larvae of diving beetles (Thermonectus marmoratus) contain at least two retinas, one with receptor cells oriented perpendicular to the axis of light, and one with receptor cells parallel to that axis. This is in contrast to typical insect eyes, which have only one retina with receptor cells oriented parallel to the axis of light. Based on preliminary findings, it is hypothesized that additional receptors are important to gauge appropriate strike distances by using a novel neural mechanism. In this project, these eyes will be characterized using a combination of histological, physiological, optical and behavioral techniques. Experiments will involve the participation of middle- and high-school teachers, who will be trained in a set of simple experiments that can be directly integrated into their school curricula, fostering inquiry-based learning. A broader impact on society at large is anticipated through an improved understanding of principles of vision that could ultimately lead to powerful new technologies. Several graduate and undergraduate students will be involved in the research, in an ongoing collaboration with the Cincinnati Zoo and Botanical Gardens, in broadly disseminating the results through high-profile journals and national and international meetings, and in local events that include public exhibits and lectures.